U.S.-Chile Cooperative Research: Symposium on Commensurability in Mesoscopic Systems, Santiago, Chile January 3-7, 1994

9321961 Jose This U.S.-Chile award will fund travel expenses for eight U.S. scientists to organize a workshop on commensurability in mesoscopic systems in conjunction with the "Fourth Workshop in Condensed Matter Physics" that will take place in Santiago, Chile, early January, 1994. The symposium will be organized by Dr. Jorge Jose, Northeastern University, Boston, and Dr. Francisco Claro, Catholic University, Chile. The workshop will focus mainly on incommensurability problems arising in the physics of artificial mesoscopic structures in the presence of magnetic fields, both in their classical (chaotic) as well as quantum regimes. These problems have been the focus of recent theoretical and experimental work. This will be the first meeting on this topic in the region and the attendance of leading experimentalists and theorists in the field will provide a unique opportunity for the exchange of ideas and information about important contemporary research in condensed matter physics. ***